International Workshop on Cold-Formed Steel Structures

In recent years, cold-formed steel structures have been widely used in building construction and other applications. A large number of research projects have been performed in the United States and Australia to study the strengths of individual cold-formed steel members, connections and structural systems. In order to provide a forum for American and Australian experts to discuss the recent research findings and the latest developments in this particular field and to identify future research needs, an International Workshop is to be held at the University of Sydney, Australia, on February 15-17, 1993. The discussion will be concentrated on numerous specific subjects relative to (1) behavior of the thin-walled elements, (2) flexural members, (3) compression members, (4) purlin-sheeting systems, (5) composite decks, (6) tubular members (7) sandwich panels, (8) connections, (9) test methods, (10) automotive components, (11) specification developments, and (12) structural systems. These topics are directly related to the transfer of technology and have economic significance for the development of new design recommendations and construction methods.